Observations and Dynamics of Interannual Coastal Flows

0220563 Clarke

Data analysis and modeling will be used to understand the interannual variability of coastal flows, particularly those associated with El Nino - Southern Oscillation phenomena, along the west coast of the Americas and the South Australian Bight. The data sets for characterizing this variability include many decades of coastal water level data, a decade of altimetry, the California Coastal Fisheries Investigation data set, and the Canadian line-P data set. The models to be used will include an improved version of the existing Clarke and Van Gorder model, including expected dependence on background velocity and sloping stratification, and a statistical model. Existing theory predicts transmission of an equatorial signal along the coast, but not propagation of the signal, as observed. This discrepancy between theory and observation will be explored.